Travel Support for the Second International Workshop on Queueing Networks with Finite Capacity: IBM Research Triangle Park, North Carolina: 5/28-29/92

This is a travel grant in support of a research workshop in the area of queueing networks with finite capacity. This will be the second international workshop ever to be held on this important topic, and it will take place at IBM Research Triangle Park (RTP), North Carolina, on May 28-29, 1992. The subject matter of this workshop deals with performance modelling of finite resources as used in computer systems, computer communication networks, and flexible manufacturing systems. In recent years, there have been significant advances in the state-of-the-art in this area. However, not enough time is allocated to this topic at the regular meetings of the relevant professional societies. The objectives of this workshop are: o to provide the opportunity to researchers who work in this area to present their latest research o to foster cooperation between researchers, minimize unnecessary duplication, and identify new long-term research objectives o to educate or bring up-to-date other researchers who work in the other areas of computer and communication performance modelling o to provide a comprehensive set of proceedings (the second in this research area).